Numerical and Combinatorial Algorithms for Location Problems arising in Wireless Sensor Networks and Other Applications

The objective of the proposed research is to develop better algorithms for solving various location
problems. Sample applications of these problems include sensor localization{where we compute the
location of every sensor node in a wireless sensor network, relay node placement{where we compute
the locations for the placement of the minimum number of more powerful but more expensive
relay nodes into a sensor network, and amplier placement{where we compute the locations for the
placement of the minimum number of optical ampliers in a wide area optical network.
Location in the Euclidean plane is a problem that is well studied by researchers in location
science and has applications in transportation and logistics. Sensor networks is a booming new re-
search field due to its applications in homeland security, medical, and many other areas. Knowledge
of sensor locations can greatly improve various routing algorithms. However, due to the energy
constraint in sensor networks, GPS can not be used. Also due to the ad hoc nature and the energy
constraint, localization and other algorithms in wireless sensor networks have to be localized or
distributed. Therefore it is diffcult to apply traditional location techniques to sensor networks
directly.
One of the goals of the proposed research is to take advantage of the PI's expertise in location
theory and numerical optimization to design better sensor localization algorithms that are suitable
for wireless sensor networks. Another goal of the proposed research is to design better algorithms
for relay node placement using techniques from both numerical and combinatorial optimization.
Our approach to the sensor localization problem is numerical in nature, including investigations
of numerical stability in distributed sensor localization. Our approach to the relay node placement
is combinatorial in nature. Due to the non-convex nature of the program, numerical optimization
is used only for subproblems or for relaxations. It is worth noting that the same problem finds
applications in both relay node placement in a at sensor network, and in amplifier placement in a
wide area optical network. We would like to point out that our research focus is on effective algo-
rithms for solving some basic problems with wide ranges of applications, rather than on hardware
related issues of specific applications.
The Intellectual Merits of this research include: (a) numerical algorithms for sensor local-
ization that are more accurate, efficient, and scalable; (b) stability analysis of distributed sensor
localization and a methodology for error propagation control that may be used in other distributed
algorithm such as time synchronization in wireless sensor networks; (c) better algorithms (both
numerical and combinatorial) for relay node placement and related problems.
The Broader Impacts of this research include the following: (a) Homeland security{
advanced localization algorithms can help improve the technology our military. (b) Human
resources{highly skilled graduate students will be trained. (c) Dissemination of research re-
sults through high-quality publications{the PI is actively publishing in high quality journals
and conferences.